A Software Development System for the Design of Microcom- puter Systems

A laboratory course on computer design for computer science and engineering science students will be improved by the addition of a pair of Tektronix microprocessor development systems. This instrument provides for the creation and editing of software in assembler, Pascal, and C languages, storage in memory, and (by interface of the instrument with the prototype) monitoring of program execution to correct hardware and software errors. Such instruments are in common use in industry so that such CAD training should be standard for laboratory courses of this type. The addition of the instruments at Loyola will greatly improve students' understanding of the relationship between computer hardware and software.